Frequency-domain ultrafast dynamics in II-VI semiconductor heterostructures

In this project funded by the Macromolecular, Supramolecular, and Nanochemistry Program of the Chemistry Division, Drs. Anne Kelley and David Kelley, from the University of California, Merced, will investigate by resonance Raman spectroscopy such effects as electronic dephasing and coupling of optical phonons to excitons, electrons, and holes in II-VI nanocrystals and heterostructures. The work will contribute to our understanding of ultrafast dynamics in semiconductor nanostructures.

Knowledge of the exact ways in which electric charge migrates in nanometer-sized structures is essential for the design and implementation of new technologies that can lead to further miniaturization of devices. The work by Drs. Kelley and Kelley will reveal details of charge migration in nanometer-sized structures and inform future technological advances. Along the way, the investigators will engage graduate and undergraduate students - many from groups traditionally under-represented in science - in cutting-edge research and discovery.